Moduli Spaces Relative Singular Divisors and Lagrangians

Abstract

Award: DMS-0905738
Principal Investigator: Eleny Ionel

This award is funded under the American Recovery and Reinvestment
Act of 2009 (Public Law 111-5).

The proposal is aimed at increasing understanding of the
structure of the moduli spaces of stable holomorphic maps by
combining ideas from several different fields of research. The
core of the project seeks to use geometric and analytical methods
to investigate what happens to these moduli during certain
natural degenerations. In particular it leads to defining a
version of Gromov-Witten invariants relative certain type of
singular subspaces, including relative both a normal crossing
symplectic divisor and a Lagrangian intersecting in a prescribed
way. It also investigates how these invariants behave under
appropriate smoothings of either the ambient space or of the
divisor and the Lagragian.

The proposed work lies at the intersection of string theory and
symplectic topology. String theory developed as a potential
candidate for unifying general relativity and particle
physics. The details of this theory have turned out to be
extraordinarily rich, and have inspired many remarkable results
in mathematics. But results in mathematics have also guided and
inspired many new discoveries in string theory and mirror
symmetry. It is hoped that this project will contribute to the
growing interaction between various fields of mathematics and
other sciences. In particular, one of the themes running through
this proposal is that symplectic topology can contribute insights
into string theory.